Collaborative Research on Bayesian Nonparametric Methods for Spatial and Spatiotemporal Data

ABSTRACT

Principal Investigators: Kottas, Athanasios and Gelfand, Alan
Proposal Number: DMS - 0505085 and DMS - 0504953
Proposal Title: Collaborative Research on Bayesian Nonparametric Methods for Spatial and Spatiotemporal Data
Institution: University of California Santa Cruz and Duke University

The investigators develop Bayesian nonparametric methodology for
spatial and spatio-temporal data analysis. Point-referenced spatial
data arises in several fields, including atmospheric science, ecology,
environmental science, and epidemiology. In fact, often such data is
replicated across time say through sampling at monitoring sites. In
certain cases, with appropriate preliminary manipulation, the
replicates may be viewed as independent. More often, the temporal
dependence is retained and, discretizing time, a time series of
spatial processes emerges. In either case, virtually all of the
modeling for the spatial processes is specified parametrically; in fact,
it is almost always a Gaussian process which is most frequently
assumed to be stationary. The investigators study new classes of
nonparametric spatial models to remove these assumptions. These models
are applicable to either of the above replicated settings. In its
simplest form, the investigators use Dirichlet processes to create
random spatial processes, which are non-Gaussian, nonstationary, and
have non-homogeneous variance. These processes are defined through
their finite dimensional distributions, and are referred to as spatial
Dirichlet processes. A spatial Dirichlet process is then convolved
with a pure error process to create an illustrative spatial process
with a nugget component. Such models are hierarchical and can be
fitted through Markov chain Monte Carlo methods. In application, the
investigators use spatial Dirichlet processes to introduce spatial
random effects into the modeling, either directly with independent
replicates or embedded within a dynamic model to handle temporal
dependence. The investigators study an assortment of problems
associated with the use of spatial Dirichlet processes, including
their theoretical global and local properties; their use as mixing
models; their use with semiparametric mixing; their implementation in
dynamic models; their utilization for interpolation at given time
points and for forecasting at future time points; their use with
non-Gaussian first stage specifications for the data; their use in
describing multivariate distributions and, as a special case, for
extended regression modeling; their use in modeling spatial point
process data; and their extension to richer classes of so-called
generalized spatial Dirichlet processes.

Point-referenced spatial data arises in application areas as diverse
as environmental science, climatology, ecology, epidemiology, and
real estate markets. As researchers collect more and more space and
space-time data, the need for analyses to enhance their understanding
of the complex processes they are sampling grows. This inspires the
need for sufficiently rich models to accommodate a variety of global
and local behaviors. The primary motivation for this research is to
expand the catalog of space-time modeling tools available to such
scientists. This research work suggests the first approach to
nonparametric Bayesian spatial and spatio-temporal data analysis.
Nonparametric Bayesian approaches have witnessed increased utilization
in recent years as a result of their successful application to certain
problems in, for example, engineering and biomedical fields.
Similar success is anticipated by bringing this methodology to
space-time settings. In particular, it is anticipated that, for fields
such as epidemiology, environmental contamination and weather
modeling, researchers will value the flexible modeling framework the
work offers. And, an increase in usage of the methodology is expected
as the computational techniques to fit the models are advanced.